Presidential Young Investigators Award: "Mechanics of Thin Film Processing-Spin Coating".

This research by a Presidential Young Investigator deals with a theoretical description of the spin coating process. Previously available models of this important industrial process have been empirically based and are of limited utility in predicting coating performance. The present investigation is to provide a realistic and reliable model. Effects of inertia, surface tension, centrifugal forces, and viscosity will be systematically investigated. The effects of non-Newtonian fluid properties will also be included.